U.S-France Joint Seminar: Multiple Sigma and PCP Receptor Ligands: Mechanisms for Neural Modulation and Protection, Montpellier, France, September 1991

This award will support US participation in a US-France joint seminar on the topic of "Multiple Sigma and PCP Receptor Ligands: Mechanisms for Neural Modulation and Protection?", to be held in Montpellier, France, in September 1991. The US and French organizers are: Dr. Edward Domino, Department of Pharmacology, University of Michigan, and Dr. Jean-Marc Kamenka, Ecole Nationale Superieure de Chimie, Montpellier, France. The seminar will cover the use of sigma and PCP receptor ligands in chemistry, biochemistry, molecular biology, neurobehavioral sciences, psychopharmacology and toxicology. Their interaction with different neurotransmitters or modulators will be updated and the search for specific sigma and PCP receptor agonists and antagonists will be described. PCP and its derivatives are currently important molecular probes in many aspects of biology and are also being considered as novel therapy as antipsychotic, anticonvulsant and neural protective agents. This seminar will bring together leading experts in this rapidly moving field of study and will provide an opportunity for valuable interactions. Results of the seminar will be published and are expected to be disseminated widely in the scientific community.